Planning Meeting Proposal: Formation of a New MAST Center Site at the University of Toledo

This action provides funds for the University of Toledo for a planning meeting to establish a third site of the Industry/University Cooperative Research Center for Membrane Applied Science and Technology (MAST). The MAST Center brings together industrial and academic researchers to facilitate the rapid development and commercialization of new advances in membrane technology in the areas of greatest societal need. The addition of Toledo to the current MAST sites will bring new areas of expertise and complement others.